CI-ADDO-EN: FrameNet 3: Upgrading FrameNet for the NLP Community

The FrameNet project has been building a lexical database containing
highly detailed information about the syntax and semantics of the
different senses of English words, with applications such as question
answering and information extraction. The database is based on
Charles Fillmore's theory of Frame Semantics, relating word meanings
to conceptualizations of situations and their participants, ranging
from simple actions like Placing to complex events such as a Criminal
process, with subevents like Arraignment and Trial. The
generalizations are derived from annotated example sentences from
large text corpora.

In this planning grant, input will be gathered from researchers in the
NLP field regarding how the FrameNet data is currently being used, how
it can be made more useful to a wider range of users, and how it can
be enhanced so as to enable new directions of research. As part of
this, a series of conferences will be held, both face-to-face and by
videoconference, to plan future FrameNet development and cooperation
and alignment of data with other lexical resources and annotation
projects, such as WordNet, PropBank, OntoNotes, etc., with the
ultimate goal of improving results in sense disambiguation, semantic
role recognition, and natural language understanding in general.